The Thymus and T Cell Differentiation

The role of the thymus in the positive and negative selection (tolerance) of T lymphocytes is currently a subject of intense interest in the immunological community. Many of the models used to study this problem entail considerable perturbation of normal physiology. Xenopus offers an opportunity to examine this selection by the production of embryonic head/body chimeras in which the thymus anlagen and the precursors of all hematopoietic cells are transplanted across major histocompatibility (MHC)- disparate barriers. The work to date suggests that the thymus epithelium itself positively selects T cells that can recognize antigen in association with the thymus's MHC, but cannot make tolerant cells which are reactive with the thymus's MHC. T cells are present within the chimeras that are reactive in the mixed leukocyte reaction (MLR) with stimulator cells bearing the thymus's MHC-type, but these cells do not reject the anterior region of the chimera or subsequent skin grafts from normal animals with the MHC-type of the thymus (split tolerance). The goal of this work is to test certain models pertaining to positive and negative selection. Specifically, the MLR against the thymus's MHC will be further studied to determine which MHC antigens, and possibly which form of the antigens, are recognized by the anti-thymus T cells. Several in vivo protocols involving the transfer of lymphocytes from chimeras into normal animals, primed cells from normal frogs into chimeras, and the examination of an "autoimmune" antibody response to the thymus's class I molecules, will be performed in the hope of determining whether the in vitro reactive T cells can be revealed in vivo, and whether a potent suppressive system down-regulates the cells in vivo. Lastly, antibodies will be raised against the Xenopus T cell receptor, and isoelectric-focusing experiments will be performed to determine directly the impact of the thymus on the maturation of the T cell repertoire. Although studies of the immune response in mammals and the human have received much attention, studies in lower vertebrates have been pursued less actively even though these organisms provide some unique opportunities to advance our understanding of the evolution and development of mechanisms of self recognition and self defense. This research takes advantage of some unique features of the development of the frog to approach the question of how amphibian lymphocytes are programmed genetically and developmentally to distinguish appropriate (foreign) target cells from inappropriate (self) target cells. The results of this study will enhance our basic understanding of defense responses in a diversity of organisms.